U.S. Coordinated Program for Masonry Building Research - Technology Transfer

This project focuses on utilization of results of the U.S. Coordinated Program for Masonry Building Research (TCCMAR). This final phase of the Coordinated Program, originally comprised of twenty-eight compatible and coordinated research tasks both experimental and analytical, is designed to produce: a consistent technological base for reinforced masonry, analytical methods capable of treating nonlinear behavior, and support limit states design and criteria methodology. The project will address three primary objectives in order to achieve the final TCCMAR program goal. (1) Technology Documentation. (2) Development and Validation of Limit State Design and Criteria Recommendation,s and (3) Dissemination of Program Results.